M.A. Degree in Chemistry for High School Teachers

9400167 Heine With this award, the Chemistry Division is supporting Dr. Harold Heine of the Department of Chemistry at Bucknell University in his efforts to establish a novel M.A. degree in Chemistry for High School teachers. The projected curriculum combines mentored research with course work to afford a broad-based program for high school faculty. ***